Mathematical Sciences: Waves in Nonlinear Dispersive and Hyperbolic Systems

The principal investigator will continue his important studies of three major areas of nonlinear wave theory: nonlinear dispersive waves, focussing of weak shock waves at caustics and catastrophic instabilities in square-wave detonations. The methods of study involve the use of analytic and asymptotic techniques supplemented with numerical analysis. Such a combined approach is called for because the phenomena under study occur at the boundaries of existing theories. Many phenomena in nature cannot be described adequately with linear models; nature is inherently "nonlinear". The proposed research involves the study of wave motions that are described by nonlinear differential equations. A good example is the "breaking" of an ocean wave as it approaches the beach. In order to describe the behavior of such a nonlinear wave the principal investigator will use asymptotic analysis in concert with numerical analysis to obtain qualitative and quantitative information.